Collaborative Research on Selection Bias in Media Coverage of Demonstrations in Washington, D.C. 1983, 1991

This is a collaborative research project (with McCarthy) on the media coverage of demonstrations in Washington DC in 1982 and 1991. Newspaper stories and television news have become a common source of evidence for describing and interpreting the intensity, duration and political content of public protest. There is wide suspicion, however, that media coverage of such events are a non-random selection of all demonstrations taking place. It therefore becomes important to understand how media institutions select from the vast range of actual events. This study will compare data from the demonstration permit application records of all police agencies that require protestors to obtain permits with local and national print and electronic news stories about demonstrations. The study will focus on demonstrations in Washington DC. This study is important for two reasons. It will improve our understanding of how and what newspapers and television news select to cover in the news, and it will provide researchers with much better knowledge about the potential bias of evidence based on newspaper and television sources.